SPSP Meeting Workshops, Nashville, TN, February 2000

Support is provided for three educational workshops to be held at the Society of Personality and Social Psychology's (SPSP) First Annual Meeting in Nashville, TN, February 6, 2000. The workshops include (1) Capturing the Vicissitudes of Life: Electronic Experience-Sampling; (2) Functional Neuroimaging in Personality and Social Psychology; and (3) Using the Web for Research in Social and Personality Psychology. The workshops will provide an interdisciplinary focus on the use of cutting-edge technologies in social and personality psychology research.